Number Theory and Algebraic Geometry

This proposal concerns problems in number theory and algebraic
geometry in four specific areas. First, in joint work with Avner Ash
and Mark McConnell, Gunnells is exploring conjectures in automorphic forms
by studying the action of the Hecke operators on the cohomology of
arithmetic groups in different contexts. Second, jointly with Robert
Sczech, Gunnells is studying the connections between special values of
L-functions and group cocycles for the unimodular group. Third,
jointly with Lev Borisov, Gunnells is investigating the construction
of modular forms using toric varieties. Finally, jointly with Eric
Babson and Richard Scott, Gunnells is studying the geometry of certain
configuration varieties naturally arising in representation theory.

This proposal deals with number theory and algebraic geometry. Number
theory is the study of the properties of the whole numbers and is the
oldest branch of mathematics. Algebraic geometry studies geometric
figures that can be defined by the simplest of equations, namely
polynomials. The questions and phenomena which arise from combining
these two subjects serve as driving forces in much of contemporary mathematics
research. Moreover, the combination of these subjects has contributed many applications
in such diverse areas as codes and data transmission, robotics, and
theoretical computer science.